AF: Small: Metanumerical Computing for Emerging Architectures: Automated Embedded Algorithms for Partial Differential Equations on Multicore Platforms

Computers were invented to automate tedious and error-prone
tasks, especially in the context of numerical calculations for
scientific simulation. Given the importance and difficulty of
developing these simulations, it makes sense to study whether
computers can assist in their production as well. This project
focuses on the open-source project Sundance, which provides
high-level syntax to describe finite element methods (FEM) for the
numerical solution of partial differential equations, freeing users
from the burdens of low-level programming. This approach can reduce
development time from months to days or even hours, allowing
scientists and engineers to get correct answers more quickly.
Sundance is useful software starting from a solid theoretical basis,
where the structure of finite element operators are derived and
analyzed from software-based Frechet differentiation of variational
forms.

Via this domain-specific embedded language, Sundance users (domain
scientistis and engineers) can express and simulate nonlinear processes
with little more difficulty than linear ones; Jacobians are calculated
internally and automatically. This robust system automates not only
standard simulations, but also sensitivity calculations, eigenvalue
problems, and PDE-constrained optimization, all through the language of
differentiation, providing a simple gateway to efficient ``embedded''
algorithms for optimization and control. Furthermore, in this project,
Sundance will be extended to run on emerging architectures such as
multicore CPU and GPU machines. New low-complexity finite element
algorithms based on Bernstein polynomials will be developed and included
within Sundance to further exploit this new hardware. Thus, this project
represents concrete transformational contributions not only automating
mathematical software but in core numerical algorithms, broadening the
circle of domain specialists with access to leading-edge simulation
technology.